The Integration of Molecular Modeling and Computational Chemistry into the Undergraduate Curriculum

The aim of this project is to create a Computational Chemistry lab and to introduce computational chemistry throughout the curriculum, via lab experiments and problem-set assignments. The college is the purchasing a Silicon Graphics workstation, eight Macintosh computers, a printer, and molecular modeling and computational software. The lab experiments demonstrate computational chemistry applications in general, organic, biochemistry, and physical chemistry. This curricular innovation allows the college to expand the scope and depth of its laboratory program, thus enhancing the level of preparation for science students. An essential aspect of the curriculum revision includes the use of the equipment in courses for non-science-majors and for lectures and demonstrations in local primary and secondary schools. Curricular developments will be shared with other institutions through lab manual exchanges, faculty interactions, publications, and presentations at scientific meetings.